Polarimeter for High Energy Photons

Since the completion of the Continuous Electron Beam Accelerator Facility
at Thomas Jefferson National Laboratory (JLAB), the precise measurement of
the polarization of high energy photons has become an important topic.
For example, the scientific program at JLAB's Hall B includes fundamental
experiments that require polarization measurements to be accurate to at
least 5%, and some of them require an accuracy of 1-2%. The physics
program at the planned Hall D will also depend largely on linearly
polarized photons whose polarization must be accurately known.
In spite of a history extending over 40 years, high energy photon
polarimetry is still a relatively undeveloped field. For high energy
photons, such as those produced at JLAB, all known methods for measuring
polarization have low analyzing power, and absolute accuracy below that
required for the approved and anticipated physics programs. The
polarimeter proposed in this project will have an unsurpassed experimental
asymmetry of approximately 1.7 for an energy range from a few tens of MeV
up to several GeV. The polarimeter is simple in construction, compact, and
its costs will be lower than that for polarimeters built according to any
other available method.
Two prototypes have already been built and tested. The performance
of the detectors and the electronics met expectations and the measured
analyzing power was as large as predicted. The use of this polarimeter at
Spring-8 enabled the first direct measurement of the azimuthal asymmetry
in pair production by linear polarized photons in the energy range 1.5 to
2.4 GeV. However, more improvements are needed to produce a polarimeter
that will be permanently in use at JLAB. This project will undertake
those improvements, including additional work on pair production theory
and calculations, data acquisition and analyzing software, and the
development of detector hardware.
In addition to solving urgent needs in polarimetry, providing the ground
for the ultimate experiments at JLAB, the development of this program will
bring novel equipment to NCCU, and increase involvement of students in
research, advancing the education of undergraduates from underrepresented
groups.